Acquisition of Imaging Instrumentation for the Hatsopoulos Microfluids Laboratory

OIA-0116486
PI: McKinley
Abstract

The PI and three colleagues in the Mechanical Engineering Department at MIT request funding to purchase imaging instrumentation for the renovation of the Hatsopoulos Microfluids Laboratory. The instrumentation is to be used by the four faculty members who are associated with this laboratory (a) for the development and application of diagonostic techniques permitting noninvasive study of fundamental scientific fluid phenomena at microscale, and (b) to develop and optimize applications based on understanding of such phenomena.